FTIR Instrumentation for Undergraduate Instruction

The development of Fourier Transform Infrared (FTIR) Spectroscopy has transformed the investigation and characterization of materials by infrared spectroscopy. The recent acquisition FTIR instrumentation by the Chemistry Department at Denison University is providing undergraduate students with experience in the qualitative and quantitative applications of FTIR at all levels of the curriculum. The instrument's superior resolution, output flexibility, and capacity for searching spectral data bases allows students to work on problems ranging from polymer film analysis by non-science student to the characterization of novel oxidized porphyrins by senior research students.